CAREER: An AI-Driven Simulation Framework for Human Autonomy Planning, Adaptive Control, and Immersive Virtual Reality Training

Teams of humans and robots can make search-and-rescue operations safer and more effective, especially in dangerous environments such as structural fires, where poor visibility and rapidly changing hazards pose risks to first responders and civilians. However, current approaches often treat robot sensing, risk assessment, decision support, and emergency-response training as separate activities, making it difficult to prepare responders and robotic systems to work together in rapidly changing situations. This Faculty Early Career Development Program (CAREER) project will develop a unified, simulation-based framework that helps people and robots to share information, assess risks, make decisions, and train for emergency situations. The project meets a national need for safer emergency operations by advancing tools that improve situational awareness, support timely decision-making based on sensor data, and better prepare future engineers and emergency responders. A unique feature of the project is that changing environmental risks will guide both robot actions and human training within the same simulation framework, rather than treating robot control, human decision-making, and training separately. Educational activities and partnerships with first responders and industry will help translate research findings into real-world learning experiences and future emergency-response tools.

The primary aim of the project is to improve modeling and simulation techniques for human-autonomy systems by integrating artificial intelligence, human- and hardware-in-the-loop simulation, and immersive virtual reality technologies. This research will establish foundational methods and a comprehensive integration framework that links sensing, environmentally and human-aware risk modeling, autonomous robot control, explainable advising, and co-adaptive training for critical emergency response situations. It will enhance situational awareness and risk understanding under uncertainty by integrating diverse sensor data, environmental factors, and human operator insights. Additionally, it will generate artificial intelligence-driven control strategies and context-sensitive explainable decision-support systems that improve decision-making for operators while collaborating with autonomous robots. These outputs will be incorporated into a virtual reality-based platform featuring an artificial intelligence coach to facilitate adaptive training. The system will undergo validation through human-subject experiments utilizing multi-modal sensing in structural firefighting situations, assessing task performance and risk exposure. The education and engagement strategy with first responders will foster workforce development and promote the broader application of the project’s findings.